Genetics Today: Understanding the Human Genome

ABSTRACT 9353033 Clark The Human Genome Project has brought to the public view the importance and excitement of genetics in our society. This videodisc project focuses on that project and especially bioethics to motivate the study of the fundamentals of molecular and cell biology and genetics. The nine-week curriculum is issues oriented since increasingly individuals will be faced with making family, career and medical decisions based upon this knowledge. The modules are entitled Fundamental Concepts, The Human Genome, Developmental Genetics, Human Genetics, Population and Evolutionary Genetics. Themes are developed in each area relative to the human organism, with focus on modern molecular mechanisms of inheritance, DNA, RNA, genes and their variable expression, congenital defects, the human genome, and bioethical considerations of genetic technologies, etc. Critical thinking and problem-solving abilities are emphasized to create students who will continue to understand the issues related to genetics. The videodisc-based materials are coordinated with biology courses developed under NSF funding. Appropriate role models from groups under-represented in science, as well as career information will be provided. In addition to the videodiscs, the materials include a textual encyclopedia of modern genetics, computer software to control and search the disc and the encyclopedia, and lesson plans. The materials are pilot tested in diverse locations. Teacher workshops are available as is an on-line bulletin board.